ROW: Paleoecologic and Paleobiogeographic Analysis of the Heceta Limestone, Alexander Terrane, Southeastern Alaska

This project will investigate the Heceta Limestone, which is a deposit of Early-Late Silurian age preserved within an ancient island arc sequence in southeastern Alaska. This formation occurs within the Alexander Terrane, which is one of the many accretionary terranes forming part of the continental margin of western North America. A main objective of this research is to determine the depositional environments represented in the Heceta Limestone. Documentation of the lithofacies and biofacies will be based on petrologic, petrographic, and paleontologic data derived from rock samples and fossils collected mainly on Heceta, Kosciusko, Marble, Orr, Tuxecan, and Prince of Wales Islands. Another major goal of this project is to determine the paleoecology of the preserved macroinvertebrate populations, in particular the brachiopod- dominated communities, and the paleobiogeographic affinities of these faunas. The development of a model that explains the provincial affinities of the fossil assemblages that occur in the Heceta Limestone and the evolution of the paleoenvironments these faunas inhabited should aid in refining our understanding of the island arc system preserved in southeastern Alaska. The results of the proposed research should also help to define more completely the geotectonic history of the region and lead to a better assessment of paleogeographic and paleobiogeographic reconstructions of the Alexander Terrane.